Descriptive Set Theory

The general aim of this project is the development of the theory of
definable actions of Polish groups, the structure and classification of
their orbit spaces, and the closely related study of definable equivalence
relations. This work is motivated by basic foundational questions, like
understanding the nature of complete classification of mathematical objects,
up to some notion of equivalence, by invariants, and creating a mathematical
framework for measuring the complexity of such classification problems. This
theory is developed within the context of descriptive set theory, which
provides the basic underlying concepts and methods. On the other hand, in
view of its broad scope, it has natural interactions with many other areas
of mathematics, such as model theory, recursion theory, the theory of
topological groups and their representations, topological dynamics, ergodic
theory, operator algebras, and combinatorics. Within this general program it
is proposed to study: (i) problems arising in the theory of countable Borel
equivalence relations, particularly concerning hyperfiniteness and
treeability, including descriptive aspects of free actions of free groups;
(ii) newly developed connections between the topological dynamics of
automorphism groups of countable structures and finite Ramsey theory as well
as a related semigroup framework for such connections with infinite Ramsey
theory; (iii) the concepts of genericity and ample genericity in Polish
groups and their relation to other structural properties of groups such as
the small index property, uncountable cofinality, the Bergman finite
generation property, fixed point properties for actions on trees and
automatic continuity; (iv) complexity of classification problems concerning
the isometric or topological classification of various kinds of metric,
topological or Banach spaces.

A fundamental question that arises in many fields of mathematics is that of
classifying a given collection of objects under study. This amounts to
providing a "catalog" or "listing" of these objects, in principle not unlike
that of cataloging species in biology or stars and galaxies in astronomy. If
such a classification is possible, one has a "complete" understanding of the
mathematical structures involved. Otherwise a more or less "chaotic"
behavior is expected. It is thus very important to understand under what
circumstances a classification is possible. This difficult foundational
question is further complicated by the fact that what constitutes an
acceptable classification is very much dependent on the particular field of
mathematics studied, so the criteria for a "good" classification in one area
might not be appropriate in another. At its basic level, this project aims
to develop a general quantitative theory, which in many situations can
precisely measure the complexity of a classification problem and thus
provide objective means by which one can decide, in any given field, whether
a satisfactory classification of the objects in question is possible. This
is achieved by associating with each collection of objects to be classified
an appropriate concept of "magnitude" or "size", which in a precise sense
measures the difficulty of its classification problem. This new theory of
"magnitude" as well as problems in different directions that arise in the
course of the development of this theory are investigated in this project.